Academic, Mentoring, and Financial Support for Upperclass Students in STEM Disciplines

Forty four scholarships are being awarded annually to academically talented, financially needy students majoring in biology, chemical engineering, chemistry, civil engineering, computer-aided drafting and design technology, computer engineering, computer science, electrical engineering, environmental science, mathematics or mechanical engineering. The project is building on a previous scholarship program available to engineering and computer science majors. The project is increasing the graduation rates of science and engineering students and is strengthening the relationship between the university and its industrial partners who are providing mentoring, student internships and employment possibilities following graduation.